SBIR Phase II: A New Scale-Up Technology for Industrial Production of High Quality Semiconductor Nanocrystals

This Small Business Innovation Research (SBIR) Phase II project proposes to develop the so-called Continuous Batch (CB) technology for the massive production of high quality semiconductor nanocrystals inexpensively. The CB technology has the following advantages over the most closely competitive technology, continuous flow production (CFP: It uses much less toxic and less expensive chemicals as reactants).

To date, production of high quality semiconductor nanocrystals can only be performed in well-equipped labs and in very small (dozens of milligram) quantities. The CB's potential for cost savings, improved qualities (i.e. size distribution, optical absorption, and photoluminescence emission)and the high productivity (thousand kilograms/year) makes it superior in comparison to the existing CFP technology.